Many-stage Stochastic Programming

0204206
Korf

The proposed project addresses modeling, duality, approximation,
implementation and application of stochastic programming problems with
many time stages. The typical so-called multi-stage stochastic program
tends to be modeled as an extension of a two-stage problem (often referred
to as a stochastic program with recourse). This misses some important
features of a problem with many time stages, including a description of the
dynamics inherent to the problem, the structure of information, and the
degree to which one may respond to that information at a given time stage.
A typical problem from mathematical finance will be framed in a many-
stage stochastic programming setting, allowing for a description of the
dynamics. The classical pricing results of mathematical finance and
extensions to more complicated problems will be obtained using the new
model. This model will be generalized to be applicable to a much broader
range of many-stage stochastic optimization problems, highlighting
duality results and their significance. In conjunction with this will be an
investigation into problems that could be modeled in a continuous time
framework, and problems with infinitely many time stages. New
stochastic programming models, and approximation techniques using the
tools of variational analysis, will be developed for these respective
problems. Finally, an investigation into the structure of many-stage
problems that include a description of system dynamics will be
undertaken, leading ultimately to the development and implementation of
algorithms for solving them.

Decision making under uncertainty and the theory and techniques of
mathematical programming merged in the 1950's to create the field now
known as stochastic programming. A stochastic program is a
mathematical program (e.g. a linear program) that includes in its
formulation a probability distribution to describe uncertain parameters.
Research consists largely of understanding problem structure, deriving
duality results and optimality conditions, developing approximation
techniques, and exploiting the structure and theory in the development of
solution schemes. The field's development began with a two-stage
recourse model, where the cost of a decision made now (e.g. production)
is affected by an uncertain outcome in the future (e.g. demand), and the
possibility of taking recourse action once the future is revealed (e.g.
overtime). A typical problem is to determine the present decision that
minimizes expected cost. While much knowledge has been gained from
the investigation of two-stage models, a limited view of many-stage
stochastic programming has resulted in which multistage problems are
considered as simple extensions of the two-stage case. This fails to
address the inherently dynamic nature of problems with many time stages.
Additionally, two-stage applications tend to come largely from areas such
as production and manufacturing, whereas the bulk of problems with
many time stages arise from financial, economic, and environmental
planning applications and other problems where dynamics are driving a
system. Thus, much of the new many-stage theory should be geared
toward these sorts of applications. The proposed research will explore the
additional dynamic structures, theory (duality, approximation), and
questions regarding implementation, of stochastic optimization problems
involving many (possibly even infinitely many, or a continuum of) stages.
This will be motivated primarily by financial applications.